CAREER: Image-Based Rendering using Stereo Vision

The goal of this research is the application of computer vision
techniques, in particular stereo vision techniques, to the domain of
image-based rendering (IBR) --- the problem of synthesizing novel
views of a scene based on existing images. The long-term goal is to
develop a system that builds an image-based scene representation from
a stream of input images, while actively selecting new viewpoints.
Specific topics of investigation will include: the development of new
performance measures for IBR methods; the development of new IBR
techniques based on stereo vision; the application of texture
synthesis techniques to occlusion issues; the utilization of visual
landmarks for calibration; and the development of on-line and off-line
algorithms for the selection of reference viewpoints.
Undergraduate students will be involved significantly in all
aspects of the research project, including implementation,
experimentation, authoring papers, and attending conferences. Other
students will benefit through the integration of current research
topics into the curriculum, and through use of the lab facilities
created in the context of the project. The PI's long-term educational
goals include developing non-traditional courses aimed at students not
ordinarily specializing in the sciences, and establishing contacts to
industry for a real-world perspective.